Long and Medium Term Research: Role of Phospholipases in Tumor Necrosis Factor Action

Long and Medium Term Research: Role of Phospholipases in Tumor Necrosis Factor Action. This award recommendation is made under the Program for Long and Medium-Term Research at Foreign Centers of Excellence. The program is designed to enable young U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research and the use of unique or complementary facilities, expertise and experimental conditions in foreign countries. The award will support a 15 month research visit by Dr. Kathleen L. Kelly, Boston University School of Medicine, with Dr. Faustino Mollinedo, Ph.D, of the Consejo Superior de Investigaciones Cientificas, Centro de Investigaciones Biologicas, Madrid, Spain. The researchers will seek (1) to characterize the acute effects of tumor necrosis factor on phospholipases A2 C and D activities in adipocytes, and (2) to determine if this effect correlates with inhibition of lipoprotein lipase activity and synthesis. Tumor necrosis factor, produced by macrophages in response to invasive stimuli, is a primary mediator of immunity and inflammation. In addition to its mediator of immunity and inflammation. In addition to its anti-tumor effects, tumor necrosis factor inhibits anabolic processes in adipose tissue. It has been postulated that in the acute phase of infectious challenge, tumor necrosis factor would induce a net flux of lipid into the circulation, where the host defense system could use it as an energy source. However, an adverse effect of tumor necrosis factor is a loss in the anabolic regulation of adipocytes by insulin. The molecular events and signalling mechanisms which underlie the effects of tumor necrosis factor remain to be delineated. Preliminary data from other laboratories suggest that phospholipid hydrolysis may be an obligatory event in mediating the cytolytic effects of tumor necrosis factor stimulates phospholipase activity in adipocytes, and that this effect is correlated to its catabolic actions. The results of this study could have implications in developing therapies for the treatment of diseases such as type II diabetes and AIDS, which are characterized by insulin resistance, hypertrigly- ceridemia and tissue wasting. The award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents' allowance, if applicable, and a flat administrative allowance of $250.00 for the U.S. home institution. //